Numerical Methods for the Study of Some Nonlinear Wave Equations

This award will support U.S.-Greece cooperative research between a group headed by Prof. Jerry Bona of Penn State University and a similar group headed by Prof. Vassilios A. Dougalis of the University of Crete, Greece. The collaborators intend to conduct computational and theoretical research on numerical methods for solving two important nonlinear partial differential equations: the nonlinear Schroedinger equation and the Korteweg-de Vries equation. Over the past few years the collaborators have produced several important papers on the numerical solution of the mentioned partial differential equations. These equations are valued because they help to model certain nonlinear wave phenomena that occur in areas of applications such as water waves, plasma physics and nonlinear optics. By supporting the interaction of these experienced and productive collaborators, this award will help to advance our understanding of nonlinear phenomena.